Novel Aromatic Chemistry

With this award, the Synthetic Organic Program will support the research of Dr. Harold Hart of the Department of Chemistry at Michigan State University. Dr. Hart will continue his program which focuses on the synthesis of novel aromatic compounds with rigid frameworks that have intramolecular cavities, and that have exceptional thermal stabilities. Synthetic studies developed for the iptycenes will be extended to substituted and functionalized supertriptycene, to supertritriptycene, to cycloiptycenes, to novel iptycene "trimers", to helically chiral iptycenes, and to triptycenes containing two and three anthracene moieties. Also targeted for synthesis is tetrahedralene, a novel C36H24 hydrocarbon containing four tri-substituted benzene rings and six cis double bonds that has T symmetry, a central cavity, and is calculated to be strain-free.